RUI: Eclipsing Binaries and Variable Stars in the Local Group: Maximizing Return with an Intelligent Data Pipeline

AST-0507542
INSTITUTION: Villanova University
PI: Edward Guinan

TITLE: "Eclipsing Binaries and Variable Stars in the Local Group: Maximizing Return with an Intelligent Data Pipeline"

ABSTRACT

Dr. Edward Guinan, at Villanova University, will develop new data processing techniques and methodologies using minimal human intervention, focused on exploiting the potential of eclipsing binaries and variable stars found in new surveys. The goal is to integrate technologies of Artificial Intelligence into the data processing pipelines of major current and future ground- and space-based observational programs. The motivation for the proposed program lies in the expected growth in number of discovered variables with the growth of observational capabilities. A direct benefit of the research will be the use of eclipsing binaries in the Local Group for the study of galaxy evolution and cosmology. The broader impact of the work will be a large number of variable star datasets that will be made available to the astronomical community, as well as algorithms that will be useful for a broad range of instruments now in existence, and many that are planned. Undergraduates will also participate in the work, providing for a research-based educational experience for the students.